Mathematical Sciences: Group Travel Award for the 4th Valencia International Meeting on Bayesian Statistics, Peniscola, Spain, April 15-20, 1991

This grant will fund 25 travel awards, predominately for women, minorities and young researchers to attend and participate in the 4th Valencia International Meeting on Bayesian Statistics to be held in Peniscola, Spain, April 15-20, 1991. This series of meetings, held once every four years, is acknowledged as the premier international forum for discussion and dissemination of advances in the rapidly growing area of Bayesian statistics.